Zooscope: Focus on Middle School Teaching

9353399 Clark This is a three year collaboration between Brown University's Institute for Secondary Education, the Roger Williams Park Zoo, and the middle schools in Rhode Island and southeastern Massachusetts. The emphasis of the project is to have science teachers doing hands-on investigative laboratory work with university scientists at the Zoo. Thirty teachers each year will learn research techniques as they work at the zoo, exploring themes such as Diversity and Anthropology, Reproduction and Conservation and Behavior-Morphology and Environmental Conditions. Workshops will include sessions on teaching for collaborative learning, using essential questions to frame a curriculum, stressing inquiry-based learning and using technology. The project staff will observe and provide support during the academic year. The project is designed to provide an opportunity for science middle school teachers to experience the Zoo as a living laboratory and to encourage teachers to use innovative methods which will enhance science education in the classroom. This proposal is appropriate for teacher enhancement because it is a leadership project designed to prepare middle school science teachers to collaborate with a local zoo in developing an innovative and research-based science program for students. It will also further the goals of Rhode Island's SSI project. The cost-sharing amount is 41% of the amount requested from NSF. ***